Underwater Vision For Intelligent Autonomous Underwater Vehicles

A joint program of work is proposed between Florida Atlantic University and Carnegie-Mellon University to develop an underwater three dimensional vision system for intelligent autonomous underwater vehicles. The main thrust of the work will be in the development of algorithms for the processing of the signal from a multiple element SONAR array to generate a grid representation of the ocean bottom terrain and the development of map building algorithms to generate a coherent map of the terrain and use the representation for navigation, object recognition and classification, and path planning. The present types of SONAR systems in general generate two dimensional information or if three dimensional information is generated, the resolution is rather poor. Thus, an innovative SONAR system is to be developed that differs from other SONAR systems its in its mode of operation, relying more on data processing which will allow the extraction of three dimensional information with high resolution and with a refresh rate controlled only by the speed of the processing unit. The basic approach of the signal processing consists of multi-dimensional discrete Fourier transforms, in time and space, of the acoustic signals received by the multi-element receiver array of the SONAR system. The processing will first generate angle-angle-range data which is then converted to a discrete representation of the ocean bottom terrain. The main tasks of the map building process will be the data handling and the matching of data structures acquired from different vehicle locations and orientations relative to the terrain and the extraction of high level features such as object location, object type an topographical information. The result is a high level three dimensional world model image required to support underwater surveying and sensor based navigation.